U.S. Africa Workshop on Mathematics and Physics (January 1994)

Technical Narrative: This proposed conference and workshop, organized by the Foundation for African Education and Development in Berkeley, California and the University of Abidjan, Ivory Coast, is scheduled for 20-27 January 1994 in Abidjan, Ivory Coast. This activity will bring together highly regarded experts representing a number of fields in pure mathematics and mathematical physics with the overall objective of building international networks between African scientists and their U.S. counterparts. This project supports the participation of approximately seven U.S. and nine African scientists. Conference participants will present papers that will be compiled and published as a conference volume. This conference/workshop in physics and mathematical sciences fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Africa to combine complementary talents and present research results in areas of strong mutual interest and competence. This activity has an educational and outreach effort that has the potential for generating new scientific activity and new international linkages.